Concurrency Experiments in a UNIX Environment

Distributed computing is an important aspect of many fields of computer science including architecture, operating systems, programming languages, data base management, algorithms, and artificial intelligence. Undergraduates are usually introduced to this subject in an operating systems course during a study of process control and concurrency. There is, however, a lack of programming assignments which give students practical experience with these concepts within a single semester course. This project establishes a laboratory and develops an innovative laboratory curriculum which can serve as a model for undergraduate operating systems courses in other programs. The laboratory is workstation-based and uses the UNIX operating system in a windowing environment. Fourteen workstations and a server have been purchased and networked. A series of experiments and student projects based on virtual rings are being implemented, and a laboratory manual is being produced which describes student assignments covering most of the topics contained in a standard operating systems course. In addition, debugging tools are being integrated with the windows to allow students to monitor concurrent computations. The award is being matched by an equal amount from the principal investigator's institution.